Travel Grant for 2000 IEEE International Solid-State Circuits Conference (ISSCC 2000)

Bruce A. Wooley
ECS-0071115

The IEEE Solid-States Circuits Society is sponsoring the 2000 IEEE International Solid-State Circuit Conference (ISSCC 2000 will be held in San Francisco, CA from 7 to 9 February 2000. The central conference theme is "ICS for the 21st Century Systems."

This project requests travel support to defray the travel expenses for students whose papers have been selected for presentation at the Conference, but who lack funds and might not be able to attend without travel support. The total amount requested is $4,000 on the basis of an average travel grant of $500 for 8 participants. ISSCC 2000 will be matching the funds awarded.